Neuroendocrinology of the Olfactory Bulb

A fundamental question in neurobiology is how the brain forms and maintains memories. One possibility is that neurochemical changes are involved. To test this idea, Dr. Dluzen has designed a clever series of studies that uses in vivo push-pull cannula system combined with state-of-the-art methods of detecting and identifying relevant neurochemicals. He will measure specific neurotransmitters or their metabolites within discretely localized brain regions in freely behaving animals. The animals will perform a series of novel behavioral tasks that allow evaluation of the behavioral responses within the context of memory/recognition processes. Moreover, Dr. Dluzen will examine how hormones and previous social experiences modulate the behaviors and neurotransmitters. Thus, his work will lead to a better understanding of how neurochemical responses within specific brain regions are involved in the formation and maintenance of memories and recognition processes and how hormones and experience alter these memories.